Research Experiences for Undergraduates in Chemistry and Biochemistry at the University of Arkansas

This research Experiences for Undergraduates (REU) site project is in the areas of chemistry and biochemistry. For a three-year period beginning in 1992, ten undergraduate students will spend ten weeks each summer engaged in fundamental, "hands-on" research, under the direction of faculty members from the Department of Chemistry and Biochemistry. The research projects offer a very broad exposure to chemical research. A unique feature of the REU site activity is the departmental commitment to funding of participants to attend a regional American Chemical Society meeting, regardless of whether a paper is to be presented.